Collaborative Research: The Tuolumne Intrusive Complex: A Natural Laboratory for Studying Magma Chamber Processes, Fabrics, and Rates of Processes during Emplacement

0073943 Paterson, Scott R
0074099 Miller, Robert B.

Exactly how plutonism, especially high volume plutons in continental magmatic arcs, fits in with active continental margin tectonics is controversial. Needed parameters include understanding magma chamber processes, how fabrics relate to the magma chamber and rates of processes during emplacement. This project will utilize excellent exposures in the Tuolumne Intrusive Complex to address several of these issues by a comprehensive integrated study of several transects across the complex. Results are expected to place greater constraints on the coupling of magmatic and host rock processes during chamber growth, on processes (mixing mingling, collapse) occurring along internal margins during emplacement of subsequent magma pulses, the connections to a volcanic feeder system and the relationship between magmatic fabrics and all the operative processes.